A Fundamental Study of Trapping and Detrapping of Holes and Electrons in Oxide Defects at Room and Reduced Temperatures

A research program to investigate the dynamics of hole and electron trapping and detrapping in oxide defects/traps at room temperature and below will be conducted. Trapping behavior will be studied over a range of electric fields and incident light intensities, and the research will attempt to detemine whether charge free regions in gate insulators are defect free or represent coalesced tunneling regions at oxide thicknesses <6 nm. The study will also address the distribution and density of defects/traps in insulators which have also been exposed to ionizing radiation levels that might be encountered during device processing. The research is intended to resolve several outstanding uncertainties in this field, and to provide insight into the physical meaning of neutral defects with cross sections much smaller than an atomic dimension. %%% This research addresses basic processes in electronic materials, and is expected to result in a better understanding of these processes, and an improved ability to fabricate semiconductor devices and integrated circuits with higher performance and greater reliability.